Foam Rheology

A theoretical and numerical study will be undertaken for the development of microscopic models for foam rheology. The connection between the foam structure and macroscopic properties will be developed starting from idealized situations. The model includes the role of interfacial rheology and film-level flow. The research will be conducted in collaboration with A. Kraynik of Sandia national Laboratories. The project has long term applications in oil production and manufacturing of plastic and cellular plastics.